Quantum Information Theory

PI: Mary Beth Ruskai, University of Massachusetts Lowell
DMS-0203211

Abstract:

***************************************************************

This project is concerned with a number of mathematical problems
which arise when quantum particles are used to process and/or
transmit information. The P.I. plans to continue the analysis
and refinement of models of noise; these are important in both
quantum communication and error analysis in quantum computation.
Work in quantum communication includes a proposal which may resolve
the long-standing question of whether or not entangled inputs can
enhance the capacity of quantum channels to transmit classical
information. The P.I. also plans to construct new classes of error
correcting codes as prototypes for codes which can be designed
to deal with those errors to which a particular implementation
of quantum computation is most vulnerable. Such codes could
be combined with other techniques to reduced the overall code
length. The P.I. will also consider a random Hamiltonian
approach to the analysis of the efficiency of a proposed scheme
for adiabatic quantum computation. Finally, the P.I. plans to
continue the study of metrics in information geometry, and their
connection to measures of purity, relative entropy, and distances
between states.

It has now been established that quantum particles have the potential
to provide the basis for vastly more powerful computers, and new methods
of secure communication. Although building quantum computers remains
a formidable experimental challenge, the feasibility of several methods
of quantum communication and encryption have already been convincingly
demonstrated. However, it is also clear that all practical
instrumentation is imperfect and subject to noise and errors.
This is not surprising; dealing with noise has long been an important
facet of classical communication. However, quantum information devices
are subject to a much larger and more complex variety of errors arising
from noise. This gives rise to new mathematical challenges. This
proposal deals with a number of these questions. Effective methods
of dealing with noise are essential to the success of the nation's
ability to exploit the power of quantum theory for next generation of
computers and cryptographic protocols.

***************************************************************

--